RIA: Vibratory Phase Separation of Immiscible Contaminants in Soils

The objective of this research is to develop basic understanding of the effect of vibrations on phase separation of immiscible contaminants in soils saturated with Non-Aqueous Phase Liquid (NAPL) and water. Exploratory studies conducted by the principal investigator indicate that vibrations induced in a soil medium saturated with NAPL and water can successfully separate and dislodge the NAPL phase. The proposed study will include a series of laboratory tests to evaluate the vibratory phase separation of NAPL ganglia as a function of vibration frequencies. The attenuation of vibratory phase separation will be assessed Dynamic criteria will be developed for phase separation and mobilization of immiscible ganglia in Soil-NAPL-water systems.